The Combinatorics of Affine Algebras and their Applications to Mathematical Physics and Representation Theory

The PI intends to undertake a combinatorial study of structures
arising from affine algebras with applications to mathematical
physics, representation theory and q-series.
The primary combinatorial objects are crystal graphs which are
colored directed graphs. They provide a combinatorial
description of the deep theory of crystal bases of modules over
quantized universal enveloping algebras developed by Kashiwara
and Lusztig: As the quantum parameter q tends to zero,
these bases are described precisely by the crystal graphs encoding
nearly all the essential algebraic data. Despite their importance,
little is known about the combinatorial structure of crystals
corresponding to finite-dimensional modules of affine algebras.
The PI proposes a method to undertake such a combinatorial study.
These studies will have applications to q-series, branching
functions and fusion coefficients in conformal field theory and
statistical mechanics, and the theory of symmetric functions.

This is a project in combinatorial representation theory with
applications to mathematical (theoretical) physics. Representation
Theory is the area of mathematics most intimately involved with
studying the nature of symmetries, of any sort, whereever they occur.
Combinatorial representation theory refers to a methodology that
uses explicitly computable formulas. About a decade ago it was
realized that certain models in the area of physics known as
statistical mechanics have symmetries that are not yet completely
understood. This project carries out a
combinatorial study of the structure of those classes of symmetries
that can be represented by "colored directed graphs."
Remarkably, the structures that occur have applications in
many diverse areas of mathematics and physics,
such as statistical mechanical models, representation theory,
the theory of symmetric functions and combinatorics. For example,
they lead to formulas which encode the
particle structure of the underlying physical model.